Tropical Ocean and Global Atmosphere (TOGA) Pan-Pacific Surface Current

In this project a team of 3 US P.I.'s will collaborate with collaborators from several other countries to deploy an array of surface drifters in the equatorial Pacific in support of the TOGA (Tropical Ocean and Global Atmosphere) Programme. The drifters will provide data on surface and subsurface temperature and surface currents. Scientific goals are to map Sea Surface Temperature (SST) and currents, understand processes responsible for annual and interannual variability in SST, and improve operational Pacific Ocean models.